Using a Watershed to Teach Science to Detroit Metro Teachers

This program, offered by the University of Michigan-Dearborn, will provide a four-week summer program and academic year follow-up activities for 30 secondary school natural science and social science teachers from the Detroit Metropolitan area. The program will integrate the areas of biology, chemistry, earth science, social science, and environmental science. The Rouge River Watershed is the subject of intense scrutiny by the Michigan Department of Natural Resources and the media. The pollution levels of the river are extreme and a Remedial Action Plan, which cites the importance of education, has been developed. This interdisciplinary science program which relates the scientific, technological, and social dimensions of the problem and solutions will lead teachers and students to a greater understanding of science and its role in social problems. Preference will be given to teachers who apply as a pair representing the natural sciences and the social sciences from a school so that team work and reinforcement can take place. The summer program will use a systematic approach to the analysis of the watershed. Beginning with the geological history of the area and the formation of the watershed, the program will observe the numerous facets of the watershed and the quality of the environment by making visits to locations, such as point sources of pollution on the river as well as non-point sources away from the river. Subsequently the teachers will work in small groups as they analyze the component parts of the watershed, specifically the chemical, biological, and social components. In the chemical analysis they will learn techniques for reliable and accurate water quality tests, the determination of dissolved oxygen, pH, biological oxygen demand, total phosphorus, nitrate, turbidity, and total solids. In the biological analysis the teachers will learn sampling techniques, identification of aquatic organisms, significance of indicator organisms such as coliform bacteria, and flood plain ecology. In the social analysis they will learn the laws relating to water quality and flood plain usage, implementation of community water management programs, and the role of the citizen in their community. Throughout the program the workshop sessions will mold and incorporate the Rouge River Watershed information into the individual teachers' classroom materials. The academic year follow-up program will include update sessions on the status of the Watershed and workshops on successful techniques of implementation of the material into the classroom. This project focuses on the needs of minority and inner-city students. The use of the environment where the teachers teach and the students live and conduct their everyday lives makes this project particularly suited to the Detroit Metropolitan area.